Fluid Dynamics and Stability of the Planar-Flow Melt-Spin- ning Process

Experiments and theoretical analysis will be carried out to study the fluid mechanics and stability of the planar-flow melt-spinning process, a technique with promise for widespread commercial use in the rapid solidification of molten metals. Data will be obtained steady-state flows and their dependence on process operating parameters for ranges of practical interest; this will enable accurate prediction of macroscopic ribbon geometry. The stability of the steady flows will be tested against disturbances in flow-field and meniscus; this will enable prediction and control of ribbon surface-quality. Experiments will test predictions of the theory and guide the analyses.